Mathematical Sciences: Proof Theory and Computational Complexity

8902480 Buss This research project deals with the relationship between low-level complexity and weak formal systems of arithmetic and mathematical logic. Low-level complexity concerns feasible computational models such as polynomial time computation, logarithmic space computability and alternating logarithmic time. Past research has already shown intimate connections between low-level complexity and very weak logical systems. The intended areas for research include research on lengths of propositional and first-order proofs, on axiomatizations of Bounded Arithmetic, on intutionistic Bounded Arithemetic, and on obtaining formal theories which have proof-theoretic strength equivalent to computational classes such as alternating logarithmic time and nondeterministic logarithmic space.